Integration Imaging Equipment Into The Undergraduate GeologyCurriculum

The Geology Department is purchasing equipment to capture polarizing microscope images for use by students in several undergraduate courses, including physical geology, mineralogy, petrology, economic geology and independent studies. This equipment will enhance teaching by allowing better communication of ideas and direct participation of students in the study of the properties of minerals in both thin and polished sections.